Materials Design and Synthesis Using Molecular Kinetic and Biphase Control

9520971 Stucky The key structure-property relationships of technologically useful materials have their origins first at the nucleation stage in the embryonic collective assembly of atoms or molecules, and secondly in the organization of distinct organic/inorganic nanophases to form sometimes architecturally elaborate composite configurations. This research is directed towards these two fundamental processes: kinetic controlled atomic and molecular assembly and the use of interface dynamics to control structure, electro-optic properties, thermal transport, and stability in composite structures. The synthesis, modification, structural characterization, and study of structure-property relationships will be specifically investigated for three types of materials: (1) nanophase electrooptic and magnetic materials with tunable nanostructure dimensions and physical properties; (2) meso (15-200 0A)-structured biphase composites and porous materials; and (3) active framework porous phases. A continuing goal is to develop the methodology for constructing molecular sievelike or mesoporous phases with nonlinear active or conducting frameworks that might reversibly interface with molecular adsorbates. %%% The primary significance of this research is in the development of a basic understanding of the nanostructural design of 3-dimensional composite and porous phases. The potential technological applications of these materials include air separation, catalysis, composite materials with high mechanical strength, flexibility, and